Mathematical Sciences: Non-Linear Elliptic Partial Differential Equations in General Relatively and Geometry

9404523 Weinstein The research involves several topics in general relativity theory relating to rotating black holes in equilibrium. Certain problems can be seen in the setting of variational principles when the defining equations give rise to energy minimizing maps to symmetric spaces of non-compact type. Other problems relate to configurations of massive bodies in a perfect fluid. The research has applications to cosmology and relativistic fluid mechanics. ***